Acquisition of a Scanning Electron Microscope for Nanotechnology Investigations

EAR-0320872
Pacey

This grant will provide the funds for the purchase of a state-of-the-art scanning electron microscope (SEM). This instrument will allow us to image surfaces in the nanometer range. In addition the added instrument options will be used to determine the metal content on the surfaces and a rough molecular structure. As earth sciences joins the nanotechnology revolution, improved methods for imaging submicron surfaces is a necessary tool. The SEM is that tool. The work to be performed will create new nanomaterials, improve the environment, produce new sensors, and increase basic scientific knowledge. Dr. Rakovan's work with the apatite group minerals promises new materials that have varied thermal, solubility, affinity and sorption behavior. Roughly half the periodic table can be incorporated in apatite minerals. The SEM will be used to image the materials and identify metal constituents. An additional project includes metal identification in sediments. Dr. Dong's work is in the field of microbiological ecology and bioremediation. His studies will yield new approaches to environmental clean-up and controlling potential chemical contaminations. Dr. Edelman work is in the biological fields and in particular characterization of bacterial bio-films and organization of bio-surfaces. Dr. Cox's and Pacey's work is in the area of nanostructured materials that can be used in sensor technology. The opportunities in self assembled molecular species and "smart nozzle" technology for the US Air Force will improve environmental condition while enhancing performance of air platforms.